A Computing Environment for a Mathematical Sciences Program in a Small College

A distributed computing environment for course work and independent study projects is being developed. The computing environment is having a major impact on the upper level mathematics and computer courses that form the department's Computer Information Systems major; the environment supports coursework in distributed data bases, concurrent programming, multitasking and network operating systems, operations research and mathematical modeling and simulation. Students have access to high performance workstations to study numerical methods for solving large linear algebraic systems and large stiff systems of differential equations.